Phase Dynamics in Nonlinear Dissipative Systems

They propose experimental investigations of wavenumber selection processes and phase dynamics in nonlinear dissipative systems driven far from equilibrium. Their work will concentrate on the rotating Couette-Taylor system with and without axial flow, but some of it will also involve Rayleigh-Benard convection. They expect the experiments to have a bearing on the general problem of pattern formation and the evolution of non-periodic phenomena in systems of significant spatial extent.